Theoretical Studies Of Quantum Systems With Strong Interactions

9971332
Wiegmann
This award isjointly supported by the Materials Theory Program in the Division of Materials Research, the Analysis Program in the Division of Mathematical Sciences and the Mathematical Physics Program in the Physics Division. This theoretical research focuses on various aspects of interference effects in strongly interactive electronic systems and the study of integrable models. Topics to be studied include: tunneling and quantum interference effects in electron liquids; melting and formation of quantum crystals; fractional quantum Hall effect; analysis of complex spectra of incommensurate systems; integrable symplectic maps; and onset of chaos in integrable dynamical systems.
%%%
This award isjointly supported by the Materials Theory Program in the Division of Materials Research, the Analysis Program in the Division of Mathematical Sciences and the Mathematical Physics Program in the Physics Division. This theoretical research focuses on various aspects of interference effects in strongly interactive electronic systems and the study of integrable models. Topics to be studied include: tunneling and quantum interference effects in electron liquids; melting and formation of quantum crystals; fractional quantum Hall effect; analysis of complex spectra of incommensurate systems; integrable symplectic maps; and onset of chaos in integrable dynamical systems.
***